CAREER: Stochastic Modeling and Inference in Biophysics

Prop ID: DMS-0449204
P I: Kou, Samuel
Organization: Harvard University
Program: Career 2005
Title: CAREER: Stochastic Modeling and Inference in Biophysics

Abstract

Advances of experimental and computing technology have profoundly
changed the field of biophysics. On the experimental side, recent developments
in nanotechnology have allowed scientists to follow biological processes on
single-molecule basis, providing scientists with powerful means of studying many
biophysical processes that were inaccessible just a decade ago. This new
frontier also raises significant statistical challenges. It calls upon an
urgent need for stochastic modeling, because many classical models derived
from oversimplified assumption are no longer valid for single-molecule
experiments. Parallel to the experimental progress, the rapid advance of
computing resources and Monte Carlo methods also offers great potential
for biophysical studies, because in most biophysical experiments inference
on the underlying stochastic dynamics is complicated by latent processes,
and many biophysical problems are computing intensive. The proposal
consists of three projects: (A) Constructing stochastic models that account
for the subdiffusion phenomenon in single-molecule biophysics, where the
goal is to provide models that are not only physically meaningful, but
also capable of explaining the subdiffusion phenomenon that eludes classical
diffusion models. (B) Developing data augmentation tools to handle latent
processes in biophysical experiments, where the goal is to use the data
augmentation techniques to augment the hidden processes so as to
efficiently infer from the experimental data the biophysical properties
of interest. (C) Developing more efficient Monte Carlo method for computing
intensive biophysics problems, where the goal is to construct new Monte
Carlo methods capable of sampling complicated distributions, and apply the
new method to study the HP protein folding problem.

Technology advances have profoundly changed the society and science
in the recent decades. The field of biophysics benefits from these
advances in particular, as the technology advances have allowed scientists
to study many biological processes that were inaccessible just a decade
ago. These advances also raise significant challenges for statistics,
because the unprecedented amount of data brought by the new technology
requires critical statistical analysis. While the United States leads the
world in both statistics and biophysics research, future prominence depends
on innovations in both fields and the interdisciplinary collaborations
between them. The research in this proposal aims at developing new
statistical models and inference tools that can be directly applied to
biophysics studies and will lead to new insight about the physics of complex
biological processes. The development of statistics and biophysics not only
presents many interdisciplinary research opportunities, but also attracts
many bright students in mathematical, biological and physical sciences.
The proposed research is integrated with the principal investigator's
educational activities at both the graduate and undergraduate level.
It seeks to meet high academic standards, while providing graduate
training that will prepare students for interdisciplinary research careers.